Accessing the Internet to advance teaching and learning at Bradford College

Bradford College requests support from NSF to connect it's campus to the Internet. Bradford College in Bradford, MD has approximately 620 students and 35 full time faculty. The college intends to connect through SprintLink, an Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.